Moduli Spaces of Curves and their Cohomology

In this project, the following problems will be studied.
(A) Does M(g), the moduli space of nonsingular curves of genus g,
contain complete subvarieties of dimension g-2? Does its
Deligne-Mumford compactification contain large complete subvarieties
not intersecting certain boundary components?
(B) The question which part of the cohomology comes from the so-called
tautological classes and the problem of understanding the relations
between these classes.
(C) The problem of understanding the entire cohomology of moduli
spaces of curves motivically (for low genus).
(D) The problem of obtaining a qualitative understanding of the
representations of the symmetric group appearing in the cohomology of
moduli spaces of pointed curves (the points are ordered, which yields
a natural action of the symmetric group).
The moduli space of curves plays a fundamental role in many
areas of mathematics and in theoretical physics (string theory).
Results obtained by studying the problems above will deepen our
understanding of the moduli space itself, of families of curves, and
ultimately of the fibrations in curves of arbitrary spaces.

One usually begins by studying curves that are well-behaved (i.e., projective,
nonsingular, connected) and that are given by equations whose
coefficients are complex numbers (or elements of another algebraically
closed field). The fundamental invariant of such a curve is its
so-called genus, a nonnegative integer. If one draws a real picture of
a complex curve, one sees a (compact and connected) surface; its genus
is the number of `holes'. Often it is important to distinguish non-isomorphic curves of
the same genus and to describe the isomorphism classes of curves of a
given genus g. The moduli space M(g) of curves of genus g is a space
whose points correspond to these isomorphism classes and it has the
property that a family of curves of genus g over a base comes with a
natural map from the base to M(g). The moduli space of curves makes
its appearance in many branches of mathematics and also in theoretical
physics. It is studied intensively and for good reasons. E.g., results
about M(g) tell us something about families of curves, thus ultimately
about arbitrary solution spaces in algebraic geometry.